The Transverse Response of Masonry Walls Subjected to Strong Motion Earthquakes, Analytical Modelling, Parameter Study and Assessment of Slender Wall Design

Masonry construction comprises a large portion of building construction in the U.S. and the world. Reinforced masonry construction use is increasing in moderate to higher seismic zones because of its apparent features of economy, fire safety, architectural flexibility and ease of construction. The present state of masonry structural analysis and design, and materials and construction technologies does not enable an accurate prediction of building behavior under lateral loads such as seismic loads. In the U.S., masonry buildings are designed and built with methods, codes and standards that rely upon a mixture of working stress methods, empirical rules, and questionable methods for determining allowable stress values. Masonry is also a complex building material because of the large number of design and construction variables which influence the final product configuration and its response under seismic loads. In order to describe the seismic response of masonry buildings it is necessary to develop the fundamental knowledge base to determine basic design methodologies consistent with safety and economic requirements. The research is an analytical effort to bridge the gap between experiments and analyses to provide a tool for the prediction of seismic performance of masonry structures. The project in particular addresses correlation and analytical modelling of out- of-plane masonry walls excited by dynamic motions. Various combinations of parameters from current out-of-plane experimental programs will be considered for incorporation into analytical response models. These models form an integral part of a wall/diaphragm interaction study and also overall structures models. This project is part of the U.S.-Japan Coordinated Program for Masonry Building Research and the Technical Coordinating Committee for Masonry Research (TCCMAR) Program.